Acquisition of a High Performance Central Computing Facility at UCSB

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry and Biochemistry at the University of California in Santa Barbara will acquire a Beowulf cluster. This equipment will enhance research in a number of areas including a) simulation of biomaterial microstructures; b) simulation and interpretation of single molecule spectroscopy experiments; c) field-theoretic computer simulations of polymers and complex fluids; and d) modeling and computation of flow-structure interaction in multi-phase and complex fluids.

A cluster of fast, modern computer workstations is vital to serving the computing needs of active research departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing. These studies will have a significant impact in a wide number of areas, including materials science and physics.